Twentieth Annual Telecommunications Policy Research Conference; September 12-14, 1992; Solomons, Maryland

This award is for partial support for the Twentieth Annual Telecommunications Policy Research Conference (TPRC) in Solomons, Maryland, September 12-14, 1992. The conference provides a forum for interactions between national and international scholars in basic and applied research (from engineering, communications and information science, operations research, economics, law and public policy) and leaders in communications and information industries, government policymakers and specialists from public-interest organizations. A major function of the conference is to provide a forum for the presentation of preliminary studies to alert policymakers to new work relevant to their interests and to provide an opportunity for early critical review by peers. After revision, based in part on comments from their TPRC presentation, the papers are published in professional journals or elsewhere. All TPRC papers are collected and made available upon request from the TPRC office in Washington, D.C.